XIV International Conference of Physics in Collisions, Florida State University, June 15-17, 1994

Partial support is provided by this award for the XIV International Conference of Physics in Collisions to take place at the Florida State University June 15 - 17, 1994. A conference is held on this subject at locales that alternate between the United States and Europe. About 150 physicists from around the world are expected to attend.